CPS - Principal Investigator Meeting 2010

This NSF grant supports the First PI Meeting and Workshop on Cyber-Physical Systems (CPS), held at the Westin Arlington Gateway hotel, in Arlington, VA on Aug 10-12, 2010. The purpose of this meeting is to provide a forum for scientific interaction among a wide range of stakeholders in academia, industry and federal agencies; to review new developments in CPS foundations; to identify new, emerging applications; and to discuss technology gaps and barriers. The program of the meeting includes presentations from projects funded by NSF under the Cyber-Physical Systems program, government and industry panels, and topical discussion groups.